Anabelian Geometry and Elementary Equivalence of Fields

ABSTRACT for Award DMS-0401056 of Pop

The present research project concerns modern Galois Theory,
more specifically birational Anabelian Geometry. The main
problem I will be investigating is trying to recover the
birational class of a variety (over an algebraically closed
base field) from the pro-l Galois theory of its function field.
Related to this, there are several other questions, like the
one by Ihara/Oda-Matsumoto concerning a geometric/combinatoric
description of the Galois group of the field of rational numbers.
The above question is also related to describing rational points
of varieties via the so called Section Conjecture. This kind of
questions were initiated -in the arithmetic situation- in some
remarkable (unpublished) manuscripts by Grothendieck. But it
appears that in higher dimensions, one has such "anabelian
phenomena" even in the total absence of arithmetic, i.e., over
an algebraically closed base field.

The Galois Theory makes a bridge between two very different
mathematical aspects, namely some basic algebraic objects, like
fields, or more general spaces (varieties) on the one side,
and the way one solves algebraic equations, or constructs
covers of the spaces in discussion, on the other side. Now the
(birational) Anabelian Geometry asserts that in the case the field
one works over is "primitive enough", respectively the geometry
of the space one constructs covers of, is "complicated enough", the
totality of the "recipes" of solving all the algebraic equations,
respectively of constructing all the covers, encodes the field,
respectively the space under discussion. This opens a completely
new perspective in approaching some very fundamental mathematical
questions. The present research project addresses some of the basic
problems in this mathematical field of research.